MRI: Acquisition of an Inductively Coupled Plasma Etch System

Abstract - MRI: Acquisition of an Inductively Coupled Plasma Etch System
The objective of this research is the acquisition of a modern Inductively Coupled Plasma etching
tool with submicron dimension control. Multiple research projects at the University of Cincinnati
require a submicron etch capability, in areas ranging from photonic device and biosensor
fabrication to etching for basic physics research. The approach is to combine the etch capability
of the ICP etcher with the recently acquired and fully functioning Raith 150 e-beam lithography
tool, to enable expanded research efforts in micro- and nanofluidics, sensors and devices.
Intellectual Merit. This equipment acquisition will contribute to meeting the University of
Cincinnati's research and educational goals. Central goals of the University strategic plan are to
grow our research excellence by developing research and discovery, and to place Students at the
Center ?and thus enhance the university's ability to attract the highest-quality students. The
requested etch system will expand the research capabilities for a wide range of faculty and
literally scores of graduate students in their thesis and dissertation research, and would expose
undergraduates and summer program students to state-of-the-art fabrication techniques.
Broader Impact. Acquisition of the Inductively Coupled Plasma etcher will enhance
educational opportunities for both graduate and undergraduate students. It will have a direct and
strong impact on the development and training of our nation's future scientists and engineers in
nanoscale science and engineering, a critical segment of the nation's workforce. Undergraduate
students are exposed to the nanoscale science through a series of structured laboratory
experiments integrated with an existing NSF Nanotechnology Undergraduate Education
program. Significant collaborative efforts currently exist between the University of Cincinnati,
Xavier University (an undergraduate institution), Miami University, and the University of
Dayton.